Nonparametrics in Large, Multidimensional Data Mining

Abstract:
DMS-0010130 PI: William Schucany

This award provides funds to partially support the conference Nonparametrics
in Large, Multidimensional Data Mining. The money is used to support junior
researchers and Ph.D. students who will attend the conference. Women and
minority young investigators and Ph.D. students will be actively recruited
and encouraged to apply. The two-day conference will be held at Southern
Methodist University, Dallas, Texas, on January 12-13, 2001, and will bring
together a group of experts from industry, computer science and statistics to discuss
cutting-edge research activities in the areas of data mining and knowledge
discovery in databases. This holistic approach is necessary to push the
research frontiers in these important disciplines. Leading researchers will
present new nonparametric developments in an environment that is conducive
to the development of new human resources.